Robust Nonlinear Control: Feedback Passivation and Input Saturation Techniques

9972045
Lin

Nonlinear feedback designs offer the potential to take advantage of
genuinely nonlinear effects, for instance, to induce large effects using
small controls. The objective of this proposal is to develop theoretically-
sound, practically-useful passivity-based low-gain and low-and-high gain
control methods for designing feedback controllers that achieve global
asymptotic stability, performance robustness against modeling uncertainty,
and disturbance attenuation, for a large class of nonlinear systems which
cannot be adequately controlled by existing methods. A unique thread in
our theoretical development would be the systematic use of small controls
and feedback passivation, which focus on ways to exploit the inherently
dominant nonlinearities of the dynamic system in the feedback design,
rather than to design controllers by canceling the nonlinearities via
feedback linearization. The purpose of a feedback control is to stabilize or
regulate the system globally and do so in a robust fashion, that is, in a
manner that is not sensitive to various perturbations and structural
uncertainties in the system. A unified, passivity-based theory of robust
nonlinear control would contribute to our ability to design high
performance nonlinear controllers capable of attenuating disturbances and
tracking desired trajectories, without relying as much on an accurate
description of the system model or model parameters and on explicit
descriptions of the disturbance signals as does conventional modern
control theory.

Many dynamic systems of practical importance (e.g. robotics, electrically
stimulated muscles, rotating machines, induction motors, power systems,
aerospace vehicles, aircraft, missiles and so on) have essentially inherent
nonlinear characteristics that cannot be ignored in feedback design. More
importantly, control systems that exploit their genuine nonlinearities are
likely to achieve better performance than those that do not. Because most
engineering systems involve highly nonlinear actuators, sensors and
process elements, a goal of active research is to transform a nonlinear
system into a linear system for which well-defined linear control
techniques are readily applicable. This approach has serious limitations,
e.g. the requirement of high energy actuators and the lack of robustness of
such schemes to parameter variations and disturbances. Consequently,
these techniques have had relatively little successful in solving real-world
problems. The research plan in this proposal addresses the needs called
for in feedback design, and it proposes approaches to tackle some of the
most important issues that we believe are critical to the advancement and
application of nonlinear control theory. The main outcome of the proposed
research will be new, systematic design methodologies for the control of
nonlinear dynamic systems, which are not available in the existing
literature. The significance of this proposal is that it identifies the main
barriers that hamper the advance and application of nonlinear control
theory, but also delineates concrete problems for the control of inherently
nonlinear systems, and suggests theoretically innovative and practically
feasible methods to resolve them. A number of important and challenging
open problems will be solved. In the long term, it will provide insight and
thrust for future investigations into several theoretical and practical issues.
It is believed that the benefits to a systematic approach towards using low
energy control will be becoming more widely appreciated, particularly in
industries (e.g. manufacturing, aerospace, power and biomedical
engineering) where many applications of nonlinear control with actuator
saturation can be found. It is also expected that the nonlinear control
schemes to be developed in this program will find much broader
applications in other branches of engineering than traditional control
theory, due to their significant features and the inclusion of realistic
assumptions.